Thermal Design of Integrated Circuits

This project allows students in this institution's microelectronics program to apply thermal imaging to the design of integrated circuits. The laboratory that supports this project includes a Mikron Thermal Tracer which students use to measure and display thermal performance of integrated circuits which have been design and fabricated in the microelectronics laboratory. This activity permits students to gain practical insight into the design and fabrication problems associated with integrated circuits. In addition to its primary use in the microelectronics lab, the thermal tracer system is used by mechanical engineering students in analyzing fluid and heat transfer systems. This award is being matched by an equal sum from the grantee.